Electron microscope studies of chemical change relevant to paleomagnetism

9315913 Van der Voo The Pis will document the mode of occurrence of the magnetic mineral that carry primary magnetizations as well as the habitat of secondary magnetic mineral that carry remagnetizations in a variety of rock types. This is of importance for models of rock-fluid interaction, hypotheses of large-scale versus local fluid flow and tectonic interpretations of paleomagnetic results.